An Acoustic Boundary Control Method for Suppressing Structural Sound Radiation

Reduction of interior sound radiation in enclosed environments such as in helicopters, fixed-wing aircraft and land vehicles is a very important problem. There are two mainstream techniques for dealing with this problem. One is the active noise cancellation method (ANC) using loudspeakers, and the other is sound radiation reduction strategy via structural controls (often called active structural acoustic control or ASAC). This research project deals with the development of a mathematical theory for the acoustic boundary control method and to analytically and experimentally demonstrate the advantages of a new acoustic boundary actuation method over the existing ones. The specific research tasks include a study of the spatial characteristics of acoustic boundary control; development of a neural network for selecting optimal spatial configurations; development of hardware prototypes of sensing and actuation devices for implementing acoustic boundary control; and evaluation of existing feedforward adaptive and feedback control algorithms in conjunction with the acoustic boundary control strategy. The results obtained from this research project will lead to the development of technologies for eliminating interior noise of the vehicles, and the generation of important theoretical groundwork that will enable technology development for reducing exterior noise radiation.